University of South Florida: Students, Teachers, And Resources in the Sciences (STARS), An NSF GK-12 Fellows Project

This USF/NSF STARS GK-12 project focuses on K-5 students. The objective is to engage graduate and senior level undergraduate students in the challenge of infusing engineering and science principles in such cutting edge areas as nanotechnology, optics, and advanced manufacturing into the elementary school environment. The partnerships involve five area elementary schools, three of which predominantly serve minority students. 15 graduate and undergraduate students from diverse ethnic backgrounds will be selected as Fellows. Fellows will be trained in both pedagogy and in communication skills. The project will work closely with the School District science and mathematics coordinators and the school principals in developing and implementing a plan to help the Fellows become valuable resources to the teachers. In addition to a stipend, each mathematics and science teacher will also participate in professional development scheduled for the summer of each year. As part of the professional development, teachers will have the opportunity to participate in research experiences with researchers in engineering and the sciences.